A Study of Fracture Behavior in High Strength Concrete

The proposed research will include experimental and analytical works to study explicitly the interface behavior and its effect on the global material behavior. Principal Investigator expect to quantify the role of interface strength on the behavior and provide knowledge that will be essential in engineering the difficulty in high strength concrete. Thus, the proposed research is expected to have a direct impact on the production and use of high strength concrete in structures in efficient, economical, and safe manner. Results of the proposed work will provide insight into the deformation behavior and failure mechanisms, and will allow the development of methods for predicting failure in high strength concrete structures, thus increasing the safety in engineering design applications.